Panel on Volcanic Studies at Katmai

The Katmai Scientific Drilling Project is a large multi- agency project (NSF, DOE, USGS) which will be coordinated by the Interagency Coordinating Group (ICG) for Scientific Drilling. The membership of ICG consists of the same three agencies. The National Park Service has received notice that the ICG will submit a proposal to drill at Katmai. While they are sympathetic to the aims of the research, the Park Service wants to determine whether Katmai is uniquely suited to the particular goals of the project. Accordingly, the Park Service has asked that the ICG support an independent assessment of this aspect and suggested the National Academy of Sciences as an appropriate organization for the study. In response to the request from the Park Service, the NAS/NRC has established a Panel on Volcanic Studies at Katmai, under the aegis of the U. S. Geodynamics Committee. This is a request for NSF's share of the support for the Panel. The total cost for the panel will be $34,700, so NSF's share is $11,566. This amount will be transferred to the U. S. Geological Survey which is handling the grant to the NAS/NRC.